Algorithms and Experimentation in Computational Geometry

Algorithms and Experimentation in Computational Geometry

The project mixes central theoretical investigations in
geometric computing together with experimentation with geometric codes.
A major part of the effort will be devoted
to problems of multi-scale representation and simplification
of shapes in 3D, with applications to computer graphics
and virtual reality, sampling and optimization, algorithm animation and
visualization. On the theoretical side, it is anticipated that the work
will draw mostly from complexity theory, discrepancy theory, and
algorithm design, while the experimental aspect will emphasize
software building using available geometric codes and
animation tools